FIRE-MODEL: Converging Research and Education for the Next-Generation Physical Chemistry Fire Regime Models

This project advances fire regime modeling. Wildland fire regimes shape ecosystems, affect forest resource availability, and impact human safety, health, and property. Fire regimes in North America have been disrupted due to effects of population change, agricultural conversion, forest harvesting, and fire-suppression, among many other factors. Gaps in fire regime data, modeling, and education hamper predictions, reduce certainty, and limit confidence in prioritizing areas for treatments that are vulnerable to fuel surpluses. The targeted improvements to fire regime models benefit fire projection, fire attribution, fire risk assessment, and prescribed fire usage. Better-informed fire regime models will include improved data access, uncertainty measures, and enhanced spatial resolution. These improvements will contribute to a multitude of existing and future wildland fire challenges.

Utilizing the fire scar datasets and the Physical Chemistry Fire Frequency Model (PC2FM) as the primary sources for understanding the role of fire in a particular forest, landscape, and region, the project has three thrusts: 1) develop improved fire regime models, 2) increase fire regime model accuracy at operational scales, and 3) converge research activities, data access, and fire regime tools with educational opportunities. Advanced fire regime modeling, by integrating high-resolution data, AI/machine learning, and simulation techniques, significantly deepens our understanding of fire dynamics, enabling researchers to uncover complex patterns, predict future fire behavior, and inform more effective management and mitigation strategies. The research converges with education through a novel approach to informal learning, using a transformative platform for fire regime training and decision-making through gameplay.